Trellis-Codes and Adpative Equalization for Multipath Fading ISI Channels

9304185 Stuber The principal investigator (PI) will develop new code design criteria, and identify trellis codes and interleaving techniques that are effective for multipath fading ISI channels. In addition the PI will develop new reduced complexity receiver structures for performing diversity combining, equalization, and trellis decoding, along with suitable channel estimation techniques. Sequence estimators that are based on the Viterbi algorithm and the Fano algorithm are of particular interest. Finally the PI will derive tighter upper bounds on the error probability of receivers that employ joint equalization and decoding. The approaches that will be used in this study involve a mixture of theoretical work in channel modeling, signal processing, and coding theory as well as computation and simulation on workstations. ***